Mathematical Sciences: Pseudodifferential Operators and Nonlinear PDE

9400905 Taylor Work supported by this award will focus on mathematical problems arising in the theory of partial differential equationsnd their applications. The plans include research on three overlapping areas: applications of microlocal analysis to nonlinear partial differential equations, inverse scattering problems and diffraction of waves by a boundary. The first extends early results on the action of pseudodifferential operators and includes further development of Morrey space analysis and applications. Work will also continue in establishing that smooth solutions to various nonlinear evolution equations do not break down, provided one has a bound on certain Zygmund space norms. A program to stabilize in an optimal fashion a class of inverse obstacle problems will be carried out. Work will be done in passing from estimates for the linearized problem to the true inverse problem via a combination of techniques from microlocal analysis and a variant of Moser's method for treating hard implicit function theorems. The research on diffraction of solutions to linear wave equations by a boundary represents a long-running collaboration with R. Melrose. This work also includes investigations into phenomena in nonlinear geometrical optics in cases involving diffraction. Partial differential equations form a basis for mathematical modeling of the physical world. The role of mathematical analysis is not so much to create the equations as it is to provide qualitative and quantitative information about the solutions. This may include answers to questions about uniqueness, smoothness and growth. In addition, analysis often develops methods for approximation of solutions and estimates on the accuracy of these approximations. ***